Request for a 500 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Texas A&M University will acquire a 500 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) enzymatic and bioorganic reaction mechanisms; b) synthesis of complex, bioactive, marine natural products; c) development of new synthetic methods centered on asymmetric synthesis; and d) syntheses and applications of libraries of catalysts for discovery and optimization of new asymmetric transformations.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including biological chemistry and catalysis.